Oceanographic Equipment for the IUP Geoscience Department

The Oceanography course for non-science majors will be improved through the purchase of up-to-date oceanographic equipment. Students will participate in a weekend cruise on an oceanographic vessel. Using two ships per day, four field trips per course, 200 students can benefit. The equipment request includes salinometer-temperature-depth meters, electrodeless salinometers, a precision digital thermometer, a current meter, and three types of sediment samplers. On shore, students will analyze their data to understand relationships among chemical, biological, geological, and physical processes in the oceans. The equipment will also be used by majors in upper division oceanography courses. The university will provide 50% matching funds.